Collaborative Research: Engineering the Morphology and Microstructure of Group III-V Compound Semiconducting Nanowires

Proposal Title: Collaborative Research: Engineering the Morphology and
Microstructure of Group III-V Compound Semiconducting
Nanowires
Institution: University of California-Los Angeles
Abstract Date: 08/03/09
The goal of this interdisciplinary collaborative research effort between UCLA and Brown
University is to quantitatively understand the mechanisms governing the growth of
group III-V compound semiconducting nanowire heterostructures and hence develop
strategies to tailor their morphology, crystallinity, and chemistry. Semiconducting
nanowires have recently gained considerable attention owing to their potential for
applications in optoelectronics, nanoelectronics, sensors, energy harvesting, and
energy storage. However, growth of desired multi-component nanowire heterostructures
is difficult due to kinetic instabilities occurring during growth. To address this issue, the
proposed research will combine in situ (as well as ex situ) studies of nanowire growth as
a function of temperature, time, flux, and catalyst composition with
theoretical/computational modeling. Simulated morphologies and structures will then be
compared with experimental observations to quantitatively describe the morphological,
structural, and compositional evolution during the growth of nanowires.
If successful, the results of this research will provide a holistic understanding of the
nanowire heterostructure formation and help develop technologies for the fabrication of
advanced functional materials with desired properties. The proposed experimental and
computational methods are general and applicable to investigate (and predict)
nanostructure growth in other material systems as well as other synthesis (eg., solution
phase) methods. The results will be disseminated to enhance the understanding of the
nanowire growth mechanisms. Videos of in situ observations and growth simulations will
be posted on the Web to promote interest in nanoscience and nanotechnology among
the public. Graduate and engineering undergraduate students will benefit through
classroom instruction and involvement in the research. High-school students will be
engaged to provide them firsthand research experience that will encourage them to
pursue higher education in engineering